Graduate Student Support for Singular Control of Stochastic Processes

This award is for graduate student support for work on a project in the area of stochastic processes. Of particular interest is the problem of optimal control of systems having a large number of random variables. To control such a system in a manner which will maintain the state of the system within certain boundaries, it is necessary to use singular rather than continuous controls. Applications for this research vary from controling the economy to controling the flight of a missile.